Collaborative Research: Transport Dynamics and Mobility of Large-Scale Submarine Volcaniclastic Density Currents at Hunga Volcano, Tonga

In January 2022, the largest submarine explosive volcanic eruption recorded by modern instruments occurred at Hunga volcano in Tonga. This project will collect samples and new observations of volcanic sediment at this location to understand how underwater volcanic eruptions transport material. The research uses this recent eruption to learn about underwater volcanic landslides that can damage communication cables and other seafloor infrastructure. The project includes research and training opportunities for graduate students.

The recent Hunga Tonga eruption produced a widely studied stratospheric ash cloud and an estimated 10 cubic kilometers of much less well studied submarine volcaniclastic deposits. This project seeks to characterize the large-scale submarine volcaniclastic density currents produced by this eruption in order to better understand these understudied volcanic products globally. Systematic sampling and mapping in a field campaign using remotely operated submersible Jason, autonomous underwater vehicle Sentry, and ship-based gravity and coring will sample the eruption deposits at multiple spatial scales. These new data will enable computational modeling aimed at better understanding transport mechanisms, mobility, and rheology of submarine volcaniclastic flows. The project will include public outreach from the ship and through events hosted at a museum.